Supporting Students' Science Content Knowledge through Project-Based Inquiry

The Project-Based Inquiry (PBI) Global initiative will address STEM learning through classroom implementation at two project partner schools in North Carolina, one urban and the other rural, with culturally diverse student populations. Both are innovative public high schools implementing the Early College High School model, preparing diverse students from populations underrepresented in STEM fields for college success. Because of the synergistic interaction of theory and practice, the project will produce substantial advances in the development of improved inquiry-based learning materials and research on the impact of these materials on students and teachers. The project offers high school students the opportunity to be immersed in science content through engaging in globally-relevant learner-centered activities. The following three research questions will be addressed: 1) How does inquiry through the PBI Global process support student science content knowledge? 2) How can students' motivation and engagement be characterized after participating in the PBI Global process? 3) To what degree do teachers' attitudes toward inquiry-based pedagogies change as a result of PBI Global professional development?

Project-Based Inquiry (PBI) Global responds to the need for research-informed and field-tested products with iterative development and implementation of a globally relevant, inquiry-based STEM curriculum. The project focuses on developing 9th grade student physical, biological, and environmental science content knowledge and science and engineering practices through the topics of global water and sanitation issues. Factors influencing student motivation and engagement, as well as teacher attitudes toward inquiry-based pedagogies will be investigated. The project will use a Design-Based Research (DBR) approach to develop and refine instructional materials and teacher professional development for the existing interdisciplinary PBI Global initiative. A mixed-methods research convergent parallel design will be used to explore the effects of the classroom implementation on student and teacher outcomes.

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.